Integrative Kinetics Experiments for the Undergraduate Chemistry Curriculum

9352141 McKenna Two diode array spectrophotometry systems are being used in a project that is providing an integrative laboratory experience for students in general, organic, advanced analytical and biological chemistry. Because we believe that kinetics is a key concept which should be addressed in courses throughout the curriculum, kinetics is being used as a unifying concept to reinforce the idea that each course in the chemistry curriculum builds on skills learned in previous courses. Students in the various courses are performing a series of increasingly sophisticated investigations on the kinetics of the hydrolysis reaction of the digestive protease trypsin, using spectrophotometric and synthetic techniques and molecular modeling. ***